Cenozoic Timescale and Global Seafloor Speading

A database of finite rotation poles will be completed for the Cenozoic from a variety of ridge segments in all ocean basins on a magnetic anomaly by anomaly basis. The Paleogene polarity interval lengths will be determined by stacking and averaging sets of profiles. A revised magnetic anomaly polarity time scale will be derived from the South Atlantic records using available magneto-bio-stratigraphic control. The result will be useful for reconstruction of global plate constructions, seafloor production rates, and a refinement ofthe geomagnetic time-scale. %%% This research project will use the magnetic recording of the oceanic crust to reconstruct how the large oceanic plates have moved through time. The magnetic recording also will be used to determine the rate of seafloor production through a large segment of the earth's history. The calibration of the rates of seafloor spreading history will be used to refine the time-scale by which the ages of tectonic events are determined. The research will have a great impact on how marine geophysicists determine the earth's tectonic history.